Presidential Young Investigator Award

This Presidential Young Investigator will apply the first principles calculational techniques to the study of the fundamental physical properties of materials. Two new approaches are being developed: one for the calculation of the full phonon aspects and the other for the surface calculations. In addition, the study of the metal-hydrogen systems has stated.